Integration of the Statistics of Extremes, the Conditional Expectation and the Probable Maximum Flood

The objective of this work is to enhance the understanding of the risks and catastrophic natural and manmade events. The project will develop the mathematical bases where three concepts/issues will be integrated: a) the return period of the maximum probable flood (PMF); b) the statistics of the extreme and the choice of probability distribution function; and c) the conditional expected damage as derived from the partitioned multiobjective risk method (PMRM) that corresponds to low frequency/high impact events. This work will increase and improve our understanding of the stochastic processes associated with extreme natural events. Five tasks will be carried out, and they are: 1) develop a cogent and definite mathematical relationship between the a-priori assumptions on the return period of the PMF and their effects on dam safety problems; 2) expand findings to the dynamics of the return period of PMF in general; 3) broaden the relationship between PMRM and the statistics of extremes from certain densities to a larger class of distributions; 4) link the concept of conditional expectation of extreme events to the concept of return period; and 5) integrate tasks 3 and 4, so as to create the envisioned mathematical model. An Expedited Award for Novel research is here recommended.